Collaborative Proposal: Models and Methods for High Quantiles in Risk Quantification and Management

In recent years, vulnerabilities in financial markets, economies, and public health have posed increasingly severe risks to society. For monitoring natural disasters and forecasting epidemics, financial institutions and governmental organizations must invest in risk intelligence to clearly define, understand, measure, quantify, and manage their tolerance for and exposure to risk. By employing rigorous and robust analytics to measure, quantify, and forecast risk, business leaders and regulators can rely less on intuition and more on systematic methodologies to manage risk well and make sound policy decisions. This project will develop improved and powerful analytic tools for applied researchers, regulators, and practitioners to conduct risk assessment. These tools and techniques will have broad impacts in wide-ranging fields such as economics, finance, and insurance. The project also intends to provide training opportunities for graduate students and broaden the participation of underrepresented groups in statistics and actuarial science.

This research project focuses on the uncertainty quantification, back-test, and sensitivity analysis for both conditional and unconditional risk measures computed from mathematical models. This project develops a computationally efficient two-step inference for an ARMA-GARCH model and fits parametric and semi-parametric distribution family to residuals. The investigators will study semi-supervised learning for risk analysis when other variables with a large sample size are available. They also plan to validate residual-based bootstrap methods for quantifying risk uncertainty and develop efficient ways for risk forecasts and back-tests. The new methodologies combine some modern statistical techniques such as extreme value theory for forecasting catastrophic risk, weighted estimation for handling both infinite variance and persistent volatility, and empirical likelihood method for efficient hypothesis testing. These techniques are robust and applicable to various problems in risk management and other research fields requiring uncertainty quantification.